Mechanisms and Models of Thermocline Ventilation

A theoretical and numerical study of subduction at the base of the mixed layer will be conducted in the north Atlantic ocean. This study will explore the importance of thermodynamic forcing and the effectiveness of the thermocline ventilation in the presence of a mixed layer seasonal cycle.